REU Site: Recognition of 3-D Ojects by Learning Networks

Adams 9404992 The study of enzymes isolated from organisms inhabiting unconventional ecosystems has led to the realization that biocatalysis need not be constrained to mild conditions and can be considered at pH's, temperatures, pressures, ionic and solvent environments long though to be destructive to biological systems. However, the intrinsic basis for biological function under such extreme conditions is only starting to be addressed, as are applications for what can be called extremozymes. In addition to expanding the search for novel and interesting enzymes from extreme environments, it is important to bring to bear the current sophistication in the study of protein structure and function. Also, those familiar with potential uses of biocatalysis must become more aware of the opportunities and challenges associated with the identification study of extremozymes. Ultimately, given the information acquired from the study of extremozymes, modification to less stable enzymes to improve their ranges of stability and activity remains a possibility. %%% This workshop will bring together representatives from academia, government and industry to provide a perspective on extremozymes and their place in modern biocatalysis. Contributions will cover both fundamental and applied aspects in an effort to describe exciting developments in progress as well as to identify potential opportunities for the use of biological catalysts under extreme conditions. ***